US - Iceland Cooperative Research: Study of Hydrothermal Systems

ABSTRACT

OCE-0220303

In this project, researchers at the Rosenstiel School of Marine and Atmospheric Sciences at the University of Miami will collaborate with colleagues at the Nordic Volcanic Institute in Iceland to investigate the crustal residence time of fluids circulating through hydrothermal systems of Iceland, utilizing isotopic tools developed by the PI for submarine hydrothermal systems in mid-ocean ridges. This will allow the refinement of these techniques for further seafloor studies, as well as afford the researchers an opportunity to develop new isotopic techniques for ultimate use in submarine systems. Additionally an in-situ gamma detector will be deployed within well waters to make remote, detailed, time-series measurements of radon gas. Previous work by Icelandic investigators has shown that radon measurements have great potential as an earthquake prediction tool.